Thermoregulation and Reproduction

There are specific areas of the brain that are known to regulate a number of bodily functions. One such area is the medial preoptic area (MPOA) of the hypothalamus. In the male rat, this brain area has been shown to monitor body temperature and allow response of the body to changes in environmental temperature. In addition, the MPOA processes sensory information and, in the presence of testosterone, this area mediates hormonal and behavioral aspects of reproduction. Given this duality of function within the MPOA, experiments were begun to investigate a relationship of temperature, both in the body and in the MPOA, reproductive function. Using sophisticated telemetric thermosensors, the MPOA and deep body temperature in male rats will be monitored relative to physiological and reproductive status. Preliminary data have shown that there are changes in MPOA temperature independent of changes in body temperature, but related to reproductive processes. Further, rapid and selected cooling of the MPOA was not related to general changes in body temperature related to exercise. The experiments will examine this phenomena in more detail. The information gathered in this research will be of great interest in terms of technological developments of instruments used in the research. In addition, the study of the duality in function of the MPOA will elucidate some of mechanisms involved in the regulation of temperature and reproductive function.